College Prepatory Mathematics Project

This project will continue training teachers at the University of Illinois at Chicago and will begin the training of teachers at two other sites -- the University of Wisconsin-Parkside and DePaul University. Training will consist of intensive summer workshops on student-centered methods for teaching, such as using cooperative learning using innovative problem-solving/applications-oriented materials. The teachers will gain experience using the materials in the summer by teaching groups of high school students taking summer courses. Each teacher will implement the materials in a double-period class of first-year integrated high school mathematics during the following school year for the same students that attended the summer course. There will be support seminars during this school year to support the teachers, as well as in-class observation by project staff. This support will continue for two more summers and school years, with the teachers teaching second- and third-year high school mathematics those years to the same students. In a total of five high schools spread among the three centers, the Interactive Mathematics Project materials will be implemented by the teachers supported by this project. A comprehensive evaluation plan will track student performance and retention of teachers from this project.